Presidential Young Investigator Award: Computer Tools for VLSI

This research program explores the use of computer tools for VLSI. One problem being studied is expediting the synthesis-verification cycle inherent in computer-aided design. In all large designs, a substantial portion of effort is made implementing and verifying design changes. Although tools are available to aid in checking the design, these tools start the verification from scratch each time they are run. By designing a verification tool that accepts changes to the design interactively, it is possible to reduce the time and cost required to design integrated circuits. In addition to working on methods to improve tool performance, the research is looking at tools to improve chip performance. Using background information in both circuit design and CAD tools, methods are investigated to incorporate design knowledge initially into analysis tools, with the ultimate goal of incorporating these ideas into synthesis tools.